Studies of Oscillatory Flow over Topography

The mechanisms by which eddies are generated along coastal boundary by a fluctuating wind stress are studied by means of combined laboratory experiments and numerical models. Various types of wind forcing and bottom topography will be used in the experiments.